Frontiers in Contemporary Physics - II Workshop; Nashville, TN; March 5-10, 2001

This proposal requests funding for carrying out partial support for young physicists to attend a six-day lecture/workshop at Vanderbilt University on subjects related to cosmology/astrophysics, nuclear, and particle physics. The subjects raised are related to each other and will be addressed by experts in their respective fields.